Building Robust Mechatronics Pathways

Manufacturing and process industries are leading economic drivers in the nation, and the demand for highly skilled technicians continues to grow. Over the past five years, Central Community College (CCC) in rural Nebraska has established a proven method to deliver hands-on distance (web-based) mechatronics classes in secondary schools. This new project will pilot this course delivery method with a broader audience: workers currently employed in industry and adult learners enrolled in Adult Education (AE) programs at CCC AE office locations. Over the three-year project period, 180 students will be recruited to participate in the hands-on distance Mechatronics courses. The Business and Industry Leadership Team (BILT), comprised of leaders from participating Nebraska businesses, CCC, and the project team, recommended piloting this initiative with working professionals to expand workforce education. The project's goal is to validate a flexible scalable delivery model that enables individuals regardless of background to access technical training and enhance their career opportunities. This adapted model has the potential to create a mechanism to grow a skilled workforce from within a business.

To realize the overall project goal of increasing the number of mechatronics technicians in Nebraska, the project will adapt and pilot a new delivery method for hands-on distance Mechatronics courses with incumbent workers in industry and students in the CCC AE program. The project will leverage strong industry and employer demand; significant gaps in knowledge, skills and abilities of industry workers; and CCC's existing capacity to build an effective solution. To help facilitate the hands-on component of the distance curriculum, industry leaders from participant businesses and AE offices will experience immersive interactive professional development workshops to strengthen their skills using the hands-on Mechatronics trainers and familiarity with the course progression. The project team will leverage the lessons learned from the CCC AE staff regarding recruitment of motivated, course-ready AE learners. Once enrolled, students will follow a course sequence with one-to-one, hands-on trainers beginning with DC fundamentals in Concepts of Electronics and an Introduction to Instrumentation in the first year of the two-year sequence. The second year will continue with third and fourth courses including an Introduction to Programmable Controllers and Applications of Industrial Sensors. Documented lessons learned through an extensive evaluation process will be widely disseminated to help support urgent national calls to action to increase the number of workers entering high-demand careers in Mechatronics. This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.